Workshop on Environmentally Benign Process Research Needs, (August 15-17, 2002)

This workshop to be held in Boston, MA on August 15 - 17, 2002 on in "Environmentally Benign Processing Research Needs" will bring together some of the key people in the environmental processing area and will closely look at the pollution emissions from the various industries. Discussions will be focused on identifying potential solutions capable of converting the waste byproducts to value-added products. Thus, simultaneously significantly minimizing pollution emissions from the industrial waste byproducts and generating a profit from the value-added products.